ESR Dating of Pleistocene Hominid Sites

In collaboration with Drs. Schwartz and Grun at McMaster University, Dr. Howell will work to improve the ESR dating technique, apply it to tooth enamel, and determine the ages of a series of significant archaeological sites. The ESR dating technique is based on the measurement of energy stored in crystal lattices which results from the bombardment by environmental radioactivity. The amount of stored energy can be determined by electron spin resonance (ESR) spectroscopy. The age of the crystal is then determined from the ratio of the accumulated energy dose to the dose rate, which is a function of the concentration of radioactive elements in the environment. This method can be applied to the tooth enamel of large mammals and is thus applicable to most Pleistocene prehistoric sites for ages up to a few million years. This project includes two stages. In the first, the accuracy of the technique will be assessed through analyses of materials of varying ages which have been dated by other means. For several European sites uranium series dates are available over a time span of the last several hundred thousand years. In East Africa, sites dating to millions of years have been aged by K-A and these provide a second controlled context. In the next stage of the research, ESR determinations will be made on undated sites of outstanding anthropological significance. This research is important for two reasons. Reliable and widely applicable dating techniques are lacking for most archaeological sites over 40,000 years in age (this is the effective time limit for radiocarbon dating). If ESR can be established as a workable technique, many archaeological sites could then be dated and the information derived from them would be greatly increased. The technique would also be useful to geologists, paleontologists and other scientists concerned with the past. Secondly, the specific sites which Drs. Howell, Schwartz and Grun plan to examine are important in their own right.